Excited Electronic Structures and Processes in Small Molecules

Experimental data on the spectra of the excited states of the heavier rare gases and of the hydrogen halides will be collected, interpreted and compared with existing theoretical models. The results will provide new insights into the multichannel coupling which exists in the excited states of these molecules and provide data needed for a number of applications.